Integrated Single and Parallel Channel Sorting Cytometer Employing Novel Detection Methods

This award provides funds for a Small Business Innovation Research Phase II award. Investigation of integrated single and parallel channel stopped-flow, sorting cytometers will be carried out, employing novel detection methods and fluid control elements. The single channel cytometer will correlate simultaneous measurements of Coulter volume and fluorescence with high resolution images and impedance-based immunological quantification. The parallel channel cytometer will measure Coulter volume and two immunological parameters concurrently on three flow channels. Both cytometers should sort at 100 to 500 cells/second per channel as determined by Coulter volume and two fluorescence-equivalent parameters.